U.S.-Germany Cooperative Research: Two Electron Dynamics in Laser Fields

9909827
Gallagher
This award supports Thomas Gallagher and students from the University of Virginia in a collaboration with Ulrich Eichmann of the Division of Laser Fields and Excited States at the Max Born Institute in Berlin, Germany. The project will investigate the effects of valence-electron correlations in two-valence electron atoms exposed to intense laser pulses. The two groups will carry out experiments which will clarify the physics of multiphoton processes in two-electron atoms. In particular, they will investigate inner electron ionization and double ionization from prepared doubly excited states. Both groups are positioned to attack this problem using differing and complementary approaches. Beyond that, the collaboration should lead to entirely new ways of approaching the problem of multiphoton ionization.